Presidential Young Investigator Award

The Principal Investigator has recently returned from Japan, bringing back knowledge of the best magnetic recording and sensing technology in that country. For this project, he will try to develop more advanced technologies, based on new sensing techniques, size effects and processing technologies. Materials to be considered include coupled films, better magnetoresistive films, magnetooptic materials, and thin-film superconductors. Sensors to be investigated include thin-film Hall heads, fluxgate magnetometers, devices which utilize the extraordinary Hall effect, and parametric heads. The P.I. hopes that this research will ead to magnetic read-heads sensitive enough to read the extremely high density recordings of the next generation magnetic recording systems.